Geometry of Banach Spaces and Operator Spaces

The proposers will investigate problems in the theories of Banach
spaces and operator spaces. The main emphasis will be on the linear
and nonlinear structural properties of Banach spaces and their non-
commutative analogs, the so-called "operator spaces". The main
objects of study are Lipschitz functions between Banach spaces and
their differentiability properties, completely bounded linear maps,
similarity problems for homomorphisms on operator algebras and
various properties of non-commutative L_p-spaces.

Banach space theory, which is at the core of this proposal, studies
notions of "distance" which are not necessarily Euclidean on both
finite and infinite dimensional vector spaces. It forms the basis for
both Euclidean and non-Euclidean geometry and the analytic
geometry of infinite dimensional function spaces, such as, for
example, the space of continuous numerical functions on an interval,
or more complicated classes of functions. From the beginning, the
ideas at the root of Quantum Mechanics have had a major impact on
mathematics, stimulating the study of operators and their spectrum
instead of numerical functions. Very recently, these ideas have led
to the new field of "Quantized Functional Analysis" or "Operator
Space Theory" and this development has led to the solution of
several major problems as well as opened new avenues of research.
Analogously, the nonlinear geometry of Banach spaces also is a
rather recent development which is likely to have considerable
impact in geometrical analysis in both the finite and infinite
dimensional settings. The principal investigators are playing a
leading role in these developments.